VPW: VLBI Astrometry of Radio Pulsars (Astronomy)

Dr. Rachel J. Dewey will spend two years at Princeton University collaborating with Professor Joseph H. Taylor and other members the Physics Department on studies of radio pulsars. The major focus of Dr. Dewey's work is a pulsar astrometry project which uses Very Long Baseline Interferometry to make high precision meausrements of pulsar positions, proper motions, and parallaxes. Such measurements are relevant to many fields of astronomy and physics. By providing direct measurements of pulsar velocities and distances, they yield improved determinations of pulsar birthrates, ages, and magnetic fields. In addition, astronmetric measurements yield ties between the extragalactic and planetary ephemeris reference frames and improve the effectiveness of pulsars as probes of the interstellar medium and of relativistic gravity. Interactive activities include: organizing a brown-bag seminar series on topics of interest to women in physics and closely related fields; superivising junior and senior independent work; teaching an introductory physics course; working with other astrophysicists to develop a "Techniques of Astrophysics" graduate seminar; and participating in the Faculty Fellows program at Princeton's undergraduate colleges.